ITR: Probabilistic Checking of Proofs

Understanding the nature of theorems and proofs has been a
central quest in the foundations of computer science. The
design of the modern computer owes its origins to this quest,
and this quest has continued to play a pivotal role in
developing a theory of computing. This research project
investigates new questions in the context of verifying proofs.
It investigates the capacity of proofs to be verified
probabilistically, trading off a small possibility of incorrect
verification for a huge advantage in the time taken to verify
proofs. Research in the recent past (last ten years or so)
has shown that probabilistic verification of proofs is a
feasible goal and can lead to surprisingly efficient verifiability.
However the results have not been of practical use so far. The
main obstacle to practical utility is that the probabilistically
verifiable proofs are much longer than classical proofs. This
project investigates the tradeoff between the size of a
probabilistically checkable proof and the complexity of verifying
it. It will also investigate new applications of such proof
systems, and in particular, to the task of automatic verification
of correct execution of computer programs. For broader impact,
the project will also foster understanding and interest into
the foundations of information and computation to a wide audience
via educational and outreach activities.